Research Experiences for Undergraduates in Chemistry at the University of New Mexico

With this renewal award, the Chemistry Division supports a Research Experiences for Undergraduates (REU) site directed by Dr. Lorraine M. Deck and four co-principal investigators in the Department of Chemistry at the University of New Mexico (UNM). The ten participants, recruited regionally and from UNM, will take part in a program that offers an intensive and comprehensive research experience. The conclusion of the research experience will include a final seminar, a scientifically written research report and a poster. The opportunity will also be afforded for students to participate in the writing of a paper for publication and/or travel to a professional meeting to make a presentation.